REU: Research Experience for Undergraduates in Oceanography

This award supports a Research Experience for Undergraduate (REU) Site proposal to provide research experiences for selected undergraduates in studies related to Physical, Chemical and Biological Oceanography, to acquaint the students with the excitement and opportunities of academic research and to encourage them to pursue graduate studies and a career in ocean sciences.